Studies on the Use of Non-Conventional Imaging Methods with Narrow- and Wide-Angle Crustal Seismic Data

The new IRIS/PASSCAL instrumentation program supported by NSF has made available a new crustal exploration technique using data sets which combine vertical-incidence and wide-angle seismic reflections. No satisfactory processing schemes exist for this type of data which involve denser receiver deployments with coarsely spaced shots. This will likely become the standard crustal exploration geometry. This research will develop computer techniques to directly process seismic shot gathers, rather than working with the Common Depth Point (CDP) approach. The data processing capabilities developed here will be valuable to industrial exploration efforts and are part of the essential tools needed to take advantage of the new crustal imaging techniques that will be used by numerous scientific investigations.